Shine Workshop Coordination

Abstract: ATM 0000423

Proposal Title: SHINE Workshop Coordination

Principal Investigator: Nancy U. Crooker, Boston University

The investigators will foster the development of SHINE (Solar and Heliospheric INterplanetary Environment), an affiliation of researchers dedicated to promoting enhanced understanding of and predictive capabilities for solar disturbances that propagate to earth. SHINE is patterned on the successful GEM (Geospace Environment Modeling) and CEDAR (Coupling, Energetics, and Dynamics of Atmospheric Regions). Activities will consist primarily of organizing and coordinating workshops, and providing limited travel support to attend these workshops.